RET Site: Sensors!

This award provides funding for a 3 year standard award to support a Research Experiences for Teachers (RET) Site program at the University of Maine entitled, "RET Site: Sensors!," under the direction of Dr. John F. Vetelino. This site will provide 10 high school teachers per year from rural Maine with 8-week summer research experiences involving intensive, team-based sensor research projects with an intellectual focus on sensor theory, design fabrication, testing, and/or applications.